Block Travel: Third Virginia Tech Conference on Computers in Electric Power Engineering to be held in Cyrstal City, Virginia on October 27-29, l993.

This proposal is for partial support of group travel and publication of a conference proceeding. The conference is on the subject of precise measurements in power systems in particular on synchronized phasor measurements, precise timing, and digital recording systems. This relates to a new and promising development in the operation of power systems. If the technology can be worked out and the analytical techniques to support it can also be made available, the ability to control power systems would be greatly enhanced.